Lie Theory and Geometry: The Mathematical Legacy of Bertram Kostant Conference, Vancouver, British Columbia

Abstract

Award: DMS-0753720
Principal Investigator: Shrawan Kumar, David A. Vogan, Nolan
R. Wallach

This award provides partial support for US-based students and
junior researchers attending a conference in May 2008 at the
Pacific Institute of Mathematics (PIMS) in Vancouver, B.C. The
meeting is devoted to Lie theory and related subjects, including
invariant theory, representation theory in several aspects,
symplectic geometry, Kac-Moody Lie algebras and structures
associated to them such as groups and flag varieties, quantum
cohomology of homogeneous spaces, and Dirac cohomology.

This international conference is devoted to topics of current
interest that owe much to the work of Bertram Kostant, who is to
be honored at the meeting. Many of the conference presentations
and much of Kostant's long research career have been devoted to
exploring and exploiting symmetries of geometric objects. The
Lie groups cited above, named for 19th-century mathematician
Sophus Lie, are continuous collections of symmetries, exemplified
by the full group of rigid motions of the Euclidean plane, or by
the group of all rotations of a three-dimensional sphere. The
web site of the conference host, the Pacific Institute of
Mathematics, is http://pims.math.ca/, and the web site for this
conference is http://pims.math.ca/science/2008/08kostant/.